A Workshop on AI Methodology, Massachusetts, June 1991

This grant funds a workshop on artificial Intelligence (AI) Methodology, held at the University of Massachusetts on June 2 through June 4, 1991. The purpose of the workshop is to assess the current stat of AI methodology and discuss specific methodological improvements. Especial attention is given to the relation of AI theory to empirical research, and the soundness of the state of the art methods in generating hypotheses, predictions, experiments and in allowing replication of results. Approximately 25 scholars in the field of AI are invited to participate in this workshop. The workshop output is a volume of edited papers on a range of methodological issues that is published in the form of a book.